Modeling the Uncertainty Due to Data/Visual Transformations Using Sensitivity Analysis

In this project, the investigators study the fundamental aspects of
incorporating uncertainty with sensitivity analysis in the visual
analytics process. They also aim to develop novel and scalable
visual representations of sensitivity, from the visualization of the
raw sensitivity coefficients to visual summaries of multivariate
derivatives obtained from the analysis. Uncertainty-aware visual
analytics helps enhance analysts' confidence levels on the insight
gained from the analysis. Furthermore, it gives toolmakers a
methodology for measuring and comparing the robustness of
data and visual transformations. Sensitivity coefficients of data and
visual transformations are useful for discovering the factors that mostly
contribute to output variability, identifying stability regions of the
different transformations within the original data space, and
telling the analyst what the interaction is between variables,
outputs and transformations.

Uncertainty is introduced throughout the process of data generation,
transformation, and analysis in most real-world applications. The ability to
incorporate uncertainty into visual analysis is therefore critically important
for insightful reasoning and key decision making. This project will have a
wide-reaching impact on those areas relying on the ability to reason
about large amounts of data. On one hand, it suggests to provide a variational
view of the visual analytics process, which opens up new directions and
paradigms for visual data analysis and mining. On the other hand,
the improved understanding of the visual analytics process will help
establish the field as a scientific discipline.